Presidential Young Investigator Award

The PI intends to continue to two lines of scientific inquiry currently under investigation. The first involves studies in ice sheet stability as a function of basal flow of a deforming bed, where instability caused by marginal melting triggers ice sheet collapse. Field and modeling work support the idea of a triggering mechanism, and if correct, can also explain the patterns of ice- related, sediment deposition associated with glacial movement. In addition the PI will continue work in the basic physics of glacial ice, its transformation and implication to the broader field of paleoclimatology.